Water-Stable Selenophene-Based Quasi-2D Organometal Halide Perovskite/Si Tandem Solar Water-Vapor-Splitting from Ambient Humidity

The development of affordable green hydrogen through direct solar energy conversion represents a significant opportunity to advance energy independence. Metal halide perovskites are materials that capture sunlight and convert it to electricity with high efficiency. However, they break down when exposed to humidity or water, limiting their practical use. This project addresses this problem by developing water-stable chemical structures. These structures act as a molecular shield to protect the light-absorbing layers. They do this without harming the material's strong sunlight to electricity conversion performance. The system uses ambient humidity instead of liquid water, improving its practicality. This approach simplifies the reactor design and reduces the moisture burden on device parts, ensuring a long operational lifetime. The project expands education and workforce growth at the University of Louisville. The project provides research internships for undergraduate chemical engineering students. It also introduces graduate students to commercial product bootcamps and brings interactive electrochemistry modules to middle school students.

This project designs, synthesizes, and implements an intrinsically water-stable photoactive perovskite thin film optimized for integration into a high-efficiency tandem solar water-vapor-splitting device. Standard organic-inorganic hybrid metal halide perovskites suffer from catastrophic moisture-induced structural transformation and subsequent dissolution under humid or aqueous operating environments. This project addresses this fundamental vulnerability by developing novel, planar, highly conjugated benzodichalcogenophene ligands featuring sulfur and selenium heteroatoms (specifically, benzodithiophene and benzodiselenophene derivatives). The high planarity and dense packing of these bulky hydrophobic organic molecules at the A-sites of reduced-dimensional perovskite structures provides robust intrinsic shielding against water penetration. Concurrently, the extensive conjugation and intermolecular selenium-selenium electronic overlap maximizes cross-layer charge mobility and narrow the optical bandgap. The experimental approach utilizes a systematic alkyl chain length-dependent study to optimize the balance between hydrophobic shielding, steric packing, and the strength of noncovalent cation-pi interactions. The tailored low-dimensional configurations are stoichiometrically alloyed with mixed-cation lead iodides to generate contiguous quasi-2D thin films targeting an ideal bandgap required for top-subcell tandem operation. Material durability, phase orientation, and interfacial charge-transport kinetics are comprehensively mapped under environmental controls using grazing-incidence wide-angle x-ray scattering, x-ray photoelectron spectroscopy, and conductive atomic force microscopy. Optimized thin films are mechanically and electronically integrated with a narrow-bandgap silicon heterojunction subcell. This complete tandem device is solution-cast directly within a solid polymer electrolyte ionomer membrane. The final architecture leverages ambient humidity from air rather than direct liquid water immersion, establishing a highly stable, low-resistance photoelectrochemical system with a goal of unassisted, continuous solar-to-hydrogen generation exceeding a 100-hour operational benchmark.